Aspartic Acid Racemization Dating of the Recent Paleoenvironmental Record in Cores from Lake Titicaca

ABSTRACT P.I.Glenn Goodfriend SBR-9312787 A number of new dating techniques for use in archaeology are currently in the development stages. Of these, aspartic acid racemization on shell of various sorts (particluarly ostrich egg shell) is the most exciting and reliable, covering new ranges of dates that other techniques are inadequate for. The current small project will be the first application of this technique to especially recent excavations from Lake Titicaca around the time of colonization. It will allow for a more detailed understanding of the dynamics surrounding a number of events, including environmental alteration/degradation, that happened around that time. It will also allow refinement of the dating techniques themselves. *** P\anthro\jfried\9312787.abs PIF Cp ) ! LIST PIF U . ! PHON_WINPIF r> 9 ! HP PIF F ( ! _DEFAULTPIF ıx + ! ETAS_WINPIF 8 ! ! MAIL PIF /kY ! ETAS_WINCOM 0L |" NSFWHELPHKB i }" @ FAS PIF z # ! NSFWHELPHYP t "0( ! ! ! D $ $ ( Times New Roman Symbol & Arial " h \ ı ı \ ı I o = Jonathan Friedlaender Jonathan Friedlaender